CAREER: Strengthening STEM Education Through an Intelligent System for Pedagogical Decision-Making and Knowledge Development

This project aims to serve the national interest by strengthening STEM education and supporting educators in effectively using Artificial Intelligence (AI) to identify and apply evidence-based teaching strategies. Modern industries are increasingly shaped by AI, interdisciplinary problem-solving, and rapid technological change. As a result, STEM educators play an important role in helping students develop creativity, critical thinking, problem-solving, adaptability, and a culture of continuous learning. However, educators often face information overload, limited time, fragmented resources, or limited personalized support when identifying and applying new teaching strategies. To address this national need, this project aims to develop a personalized AI system that serves as a teaching partner for STEM educators by providing transparent reasoning and context-aware recommendations for instructional decision-making. Through a conversational interface, educators would describe instructional challenges and receive personalized, research-grounded recommendations that reflect their course context and instructional goals. The importance of this project is further reflected in its emphasis on human-AI collaboration, which empowers STEM educators to adapt and reflect on the recommended strategies and build new teaching knowledge together with AI. The expected project outcomes are to advance understanding of how educators and AI can collaborate to support instructional decision-making, a reusable body of pedagogical knowledge, and an AI framework that empowers educators to make informed teaching decisions. The significance of this project is the potential to improve STEM teaching practices, support student learning, expand opportunities for more students to participate and succeed in STEM fields, and prepare graduates for careers that advance national innovation and economic competitiveness. The educational plan further amplifies impact by engaging students in AI and education research, supporting outreach activities for local high school student internship programs, involving educators in information sessions focused on effective uses of AI to advance STEM teaching, and creating scalable, shareable resources for broader dissemination.

The technical goals and scope of this project are to develop and evaluate a novel agentic AI framework that supports pedagogical decision-making through real-time, context-aware, and pedagogically informed recommendations for STEM educators. The research activities will be grounded in human-AI agency, knowledge engineering, recommender systems, and evidence-based pedagogy and are organized into three integrated thrusts. The first thrust is semantic modeling of pedagogy by transforming empirical and theoretical knowledge into structured pedagogical units to build a reusable knowledge graph. These pedagogical units are intended to be extracted from curated scholarly sources, refined through confidence scoring and expert review, and connected through semantic relationships to support context-aware retrieval and recommendation. The second thrust plans to create a large language model-based agentic framework comprising five specialized AI agents for pedagogical knowledge mining, educator modeling, recommendation, reflection, and assessment, coordinated through an orchestration module and integrated with retrieval-augmented generation and a conversational engine. The third thrust intends to investigate how the educators’ reflective feedback and knowledge co-construction contribute to the growth and evolution of the pedagogical knowledge. Mixed-method evaluation activities will measure recommendation quality, contextual relevance, usability, adoption, and knowledge graph quality through technical metrics, expert validation, inter-rater agreement analysis, surveys, and usability studies. This project is expected to advance the field of intelligent pedagogical support systems by developing methods that integrate agentic AI, knowledge graphs, and educator reflections to deliver context-aware recommendations. Project outcomes are planned to be disseminated through open educational resources, open-source technical documentation, research publications, workshops, and community engagement activities to benefit the broader community and foster a culture of continuous learning and innovation in STEM education.

This CAREER award is supported by the NSF STEM Education Directorate’s Core Research (ECR: Core) program. The NSF CAREER:EDU Program supports early-career faculty who have the potential to serve as academic role models in research and education and to lead advances in the mission of their department or organization.